Surface Velocity Measurements on Bering Glacier During Surge

9319873 Lingle This award is for support of a small grant for exploratory research (SGER) to measure surface velocities on Bering Glacier, Alaska, with synthetic aperture radar (SAR) imagery, which began surging between March and June, 1993. Use of satellite imagery is an appropriate approach to this problem because of the scale of Bering Glacier, which is the largest in North America, with width and length dimensions of about 15 km and 200 km, respectively, and a total area, including tributaries of about 5,800 km2. The results of this work will bear on the questions of (i) the seasonal timing of the onset and cessation of glacier surges in Alaska and the Yukon Territory, (ii) whether surges necessarily begin in accumu- lation areas then propagate downstream into ablation areas, and (iii) the temporal evolution of the 2-dimensional surface velocity field, which is a reflection of basal processes, as the surge progresses. ***